NSF/CISE Computer Systems Research 2017 PI Meeting

The Computing Systems Research (CSR) program of the NSF funds a wide
range of systems research including (but not limited to) systems for
Internet-of-Things (which makes our homes and city smarter), systems to
make more affordable and energy-efficient our Supercomputers (which
furthers medical research, our understanding of the universe, and
warns the population of tornadoes and hurricanes, to name a few),
systems to improve the usefulness, security, and reliability of our
smartphones, and systems to secure and scale the cloud (which has
expanded the capabilities of IT systems while dramatically decreasing
the associated costs). The project organizes and funds a community
event for all the PIs of awards from the CSR program. At this event,
the researchers funded by the CSR program will have the opportunity to
meet at-large and share and discuss their research and ideas for the
future.

The project organizes a PI meeting that includes mostly three types of
activities. Plenary presentations will give a forum for the most
remarkable research in the field to be presented and diffused to a
large audience. These presentations are also useful to set the tone
and quality of expected research for the PIs of more recent
awards. Poster presentations of ongoing award enable casual scientific
conversation and person-to-person research diffusion; they are
expected to strengthen the social interaction between CSR researchers
and to lead to new collaborations and synergy in the field. Breakout
sessions will focus on subfield of systems research to summarize
recent successful methodology and identify problems and opportunities
for future work. The project provides a forum for systems researchers to meet and to
form new collaborations, to discuss and to disseminate successful
efforts, to identify the problems and opportunities of the future, and
to maximize the impact of subsequent systems research efforts.